Collaborative Research: Elements: Data-Agent: Agentic AI for Autonomous Data Quality Evaluation, Curation and Task-Aware Dataset Design for Vision-Based Industrial Inspection

Industrial inspection helps ensure that manufactured products, medical devices, transportation systems, energy infrastructure, and defense-related components are safe, reliable, and high quality. New computer vision technologies have the potential to improve inspection, reduce waste, and make quality control more efficient, but their progress is limited by the availability of high-quality data. Industrial inspection data are often scattered across different sources, uneven in quality, costly to label, and difficult to compare across materials, products, and production settings. This project will develop a shared data resource, software platform, and methodology framework that helps researchers, students, and practitioners evaluate data quality, improve labels, and build useful datasets for industrial inspection. By making these tools and datasets broadly available, the project will support more trustworthy data-driven inspection systems, strengthen advanced manufacturing, improve quality assurance, and contribute to national needs in economic competitiveness, public welfare, and national defense. The project will also provide open-source software, datasets, tutorials, benchmark challenges, and training materials through a community ecosystem connecting academic researchers, students, and industry practitioners.

This project develops Data-Agent, a methodological and software cyberinfrastructure platform that advances data-centric artificial intelligence for vision-based industrial inspection. The project addresses three fundamental research questions: how to evaluate the quality of large heterogeneous inspection datasets, how to use human corrections and expert feedback to improve annotation models over time, and how to design datasets that are representative, informative, and useful for downstream inspection tasks. To address these questions, the project will develop three integrated and reusable services. The first service is an agentic artificial intelligence-based dataset screening service that combines multi-scale data quality metrics with vision-language models to score and filter large inspection datasets according to image quality, annotation quality, representativeness, and deployment relevance. The second service is a label curation service that couples segmentation foundation models with Label Curation Learning with Human Feedback to convert human edits and preferences into reusable supervision for improving annotation accuracy, consistency, and completeness. The third service is a task-aware dataset design service that selects or synthesizes informative samples from large data pools by balancing representativeness, difficulty, and expected generalization across inspection domains. Each service will be built on a systematic methodological foundation and released as open-source, ready-to-use components, including documented software interfaces, containerized workflows, reproducible notebooks, pretrained models, and tutorials. The Data-Agent ecosystem will be developed through trial deployment in controlled environments, beta testing with industrial inspection collaborators under appropriate agreements, and public community release with long-term maintenance and updates. The project will also release VISION V2, a versioned benchmark dataset constructed and refined using the developed Data-Agent services. The resulting infrastructure will support the full lifecycle of industrial inspection data, from quality evaluation and annotation curation to task-aware dataset design, while producing generalizable methods for building trustworthy artificial intelligence systems from complex real-world data.

This award by the Office of Advanced Cyberinfrastructure is supported by the Section of Civil, Mechanical, and Manufacturing Innovation in the Directorate for Engineering.